Research In Disjunctive Logic Programming

This project focuses on research in disjunctive logic programming. There are two main themes: extend the procedural semantics of disjunctive logic programming to make it a viable programming language, and build a programming environment similar to PROLOG based on the above semantics. The work uses the procedural semantics of disjunctive logic programs using SLO-resolution. It is planned to extend the definition of SLO-resolution to answer positive and negative queries from normal disjunctive logic programs and to provide indefinite answer substitutions for variables in a query. It is planned to study the properties of disjunctive logic programs and identify classes of programs for which ancestry-resolution checking can be restricted without compromising completeness. The study will increase the efficiency of executing disjunctive logic programs. The intent is to augment SLO-resolution with these techniques. It is intended to build upon the theoretical studies and implement a programming system, called DISLOG, using SLO-resolution. DISLOG will be an extension of PROLOG, inheriting its stack-based environment, control structure and backtracking feature. The significance of the research will be to extend the use of logic as a programming language to a larger subset of predicate calculus. Due to its capability to solve problems with multiple extensions and indefinite information, DISLOG will provide an enhanced representation and reasoning environment for solving problems in artificial intelligence.